Educational Enhancement of Physics Laboratories

Educationally enhanced computer packages are being developed to greatly improve the learning experience of students taking first-year college physics laboratories. Many of the packages can also be useable in high schools. While current computerized laboratories provide excellent accuracy (and thereby support theory), they typically do not allow for or encourage extensive student participation, as did many earlier and simpler (but less accurate) lab methods. The interactive software packages being developed in this research program are making use of animation, still and moving photographs and tutorials to help the student understand the laboratory procedures, methods of analysis and related theoretical concepts. They also allow the student to retain control of the experimental procedure and data processing. Pre-lab instructional units, often using complex and dynamic images, help the teacher to illustrate and explain some of the laboratory concepts that are difficult to present at the chalkboard. The computer learning packages are being made compatible with as many of the existing commercial laboratory interfaces as possible. Such packages will also be useful for many laboratory experiments in which the computer is not used to collect data. The results of the investigation will be reported at national meetings and at a regional compatible conference. The software developed will be made widely available at low cost.